Summer Institute on Algebraic Geometry

Algebraic Geometry Summer Institute (Proposal DMS-0456683.)

A large scale summer institute in algebraic geometry, three weeks in
duration, will be held during July-August 2005 at the University of
Washington, Seattle. Organizational support will be provided by the
American Mathematical Society and the Clay Mathematics Institute. Each
week will have a general topic as a focus and at the same time will
include a component of core "classical" algebraic geometry. The foci
will be: Mathematical Physics in Algebraic Geometry; Combinatorics,
Commutative Algebra and Classical Algebraic Geometry; and Arithmetic Algebraic
Geometry. Three plenary morning lecture series will be held in each
week, lecturers having been selected as leading researchers who are at the
same time exemplary expositors. In addition, leading specialists will be
invited to serve as seminar leaders, and will select high impact
lectures given by the best lecturers for afternoon seminars. Additional
activities will include the CMI distinguished lectures and an evening graduate
program.

Algebraic geometry, the study of geometric shapes defined by polynomial
equations, is a vast generalization of the high-school topic "analytic
geometry". It has enjoyed much cross-fertilization in past decades with
areas in pure mathematics, applied mathematics, computing and
theoretical physics. One way American algebraic geometers have maintained the
vibrancy of the field is by holding a large scale, NSF-funded summer institute
about every decade, an institute which aims to bring participants up to
the forefront of research in the salient direction the field has taken
in the previous years, and to project directions which the field is
expected to take in the following years. These institutes have had a crucial
formative role on the subject, with enormous impact especially on the
emerging careers of young researchers. This summer institute project
aims to follow in their footsteps.